Novel Pathogenicity Genes of Soft-rot Erwinias

We have isolated four prototrophic pectolytic avirulent mutants of Erwina carotovora subsp. carotovora (Ecc) which seem to be defective in overcoming host resistant. These mutants show initial in plants growth (10 to 17 logarithmic generations) similar to pathogenic strains of Ecc but fail to reach the threshold of bacteria (1 x 108 cfu) required to demonstrate the soft-rot disease phenotype. We have isolated clones which complement these mutations. Two subclones obtained from one of these complementing loci seem to inhibit production of pectate lyases, polygalacturonase, cellulase and protease in for Ecc and E. carotovora subsp. atroseptica and thereby impart an avirulent phenotype to these phytopathogenic bacteria. The goals of our proposed research are (1) the molecular characterization of pathogenicity genes of Ecc and their regulation of expression in cultures and during pathogenesis in planta, and (2) to determine the molecular basis of inhibition of production of extracellular enzymes by cloned DNA sequences. The nature and mechanisms of pathogenicity genes, isolated using avirulent pectolytic mutants, will be demonstrated by integrated series of experiments including (a) analysis of the structural and regulatory components of these operons by saturation transposon mutagenesis, S1 mapping and DNA sequencing, (b) localization of gene product and determination of the timing and regulation of gene activation using antibodies and reporter gene fusions, and (c) DNA mobility retardation and DNaseI foot-printing analysis to characterize the trans-acting regulatory factors. Experiments also are outlined to close any trans-acting factor(s) which may be responsible for the inhibition of the extracellular enzyme production. This research will provide insight into the molecular basis of plant-microbe interactions and will add to our understanding of the regulation of expression of extracellular enzymes in phytopathogenic bacteria. Experiments will be conducted to determine whether or not these effects are caused by the cloning vector. Cloned bacterial genes will be sequenced and experiments which are required to establish the physical relationships between the gene which complements the AH2552 mutation and the DNA sequence which inhibits production of plant cell-degrading enzymes will be carried out. This research will provide insight into the molecular basis of plant-microbe interactions and will add to our understanding of the regulation of expression of extracellular enzymes in phytopathogenic bacteria.